XIX International Symposium on Lepton and Photon Interactions at High Energies

***
9806632
Richter
This grant will support an international conference at which the latest results in the field of particle physics will be discussed. Funds will be used to provide logistic support, aid in the publication and dissemination of results, and to subsidize the travel costs and widen the participation in the conference of younger scientists.
***